Analytical Equipment Request: Purchase of Thermal Ionization Mass Spectrometer for the Department of Earth and Space Sciences

This award provides funds for 45% of the cost of acquiring a modern multicollector thermal ionization source mass spectrometer that will be installed and operated in the Department of Earth and Space Sciences at the University of California, Los Angeles. The University is committed to providing the remaining 55%. UCLA is establishing a major center for isotope geochemistry, and this equipment is a vital part of that effort. The spectrometer will be used in a wide spectrum of research applications, ranging from the evolution of the crust-mantle system through studies of volcanic and crustal rocks and to analysis of elemental and isotopic partitioning between mineral phases.